Workshop on Developing a Research Agenda for Linking Biogeophysical and Socioeconomic Systems, June 5 - 8th, 2000, Phoenix, Arizona

Abstract

00-73653
Kinzig

Workshop: Developing a research agenda for linking biogeophysical and socioeconomic systems

Humans have become a global biogeochemical force, with a large and growing influence on the dynamics and functioning of the Earth's biosphere. At the same time, there is an increasing recognition of the extent to which environmental goods and services (e.g., water purification, pollination, pathogen control) have fueled economic growth and benefited humans. Many of the most compelling interdisciplinary questions on environmental systems lie at the interface of ecological sciences and human sciences. This grant will support an extensive cross-disciplinary dialog among natural and socioeconomic scientists in order to develop a prioritized research agenda for this emerging field of inquiry.